Improvements in Immunology, Developmental Biology and Introductory Biology Using Tissue Culture Techniques

Tissue culture techniques will be introduced in a new course in Immunology, a rapidly growing and increasingly important field of biology. To supplement equipment already at hand, two laminar- flow hoods, a water-jacketed CO2 incubator, a shaker/water bath, three more inverted-stage microscopes, and flourescence illumination for the hase-contrast compound microscope will be purchased. These will enable students to perform immunology experiments without problems of contamination. The tissue culture facilities will also be used in the Developmental Biology course and in the introductory course in order to study growth and differentiation of living cells. The college will provide 50% matching funds.